CICI:TCR: Towards Resilient AI Data Center Infrastructure with Power Safety

The rapid proliferation of artificial intelligence (AI) applications has led to the deployment of large-scale, high-density, energy-intensive accelerators such as GPUs and TPUs in AI data centers. However, the expanding scale and powerful accelerators have introduced unprecedented power demands, pushing the power distribution and cooling systems to approach peak capacities. It further tightens the coupling between computation and electricity infrastructures, posing new operational risks at the intersection of AI data centers and power grids. All these factors pose serious reliability and safety threats to critical infrastructures, including AI data centers and power grids.

This project investigates power-related vulnerabilities in AI data centers and their interactions with power grids, with a particular focus on how adversarial, accidental, or cascading failures can compromise reliability, availability, and security. This project aims to systematically characterize these vulnerabilities and develop defensive mechanisms that enhance the resilience of both AI computing infrastructure and the underlying power grid. The main contributions of this project lie in the comprehensive power risk assessment, novel and effective defense design, prototype development, and thorough experimental evaluation in real scenarios. The team will synthesize the results and observations of this project into actionable intelligence, which can be leveraged for further improving the resilience and availability of AI data center and power grid infrastructures in the future. The power safety coverage provided by this project will be instrumental in defending data center and power grid infrastructures against future malicious attacks.